Collaborative Research; CT-M: Computer Systems Vulnerabilities and the Efficacy of Defensive Mechanisms

Longitudinal studies of network systems are very difficult to conduct when systems are large, heterogeneous, highly interconnected, and open; yet, the importance of these studies cannot be underestimated. This project focuses on an 18-month longitudinal study on server-side vulnerabilities in the campus network of the University of California at San Diego and on client-side vulnerabilities the University of California at Davis. The issues concern the efficacy of security measures at the campus-wide networks and its implication for security of networked systems at universities, government facilities, and commercial enterprises.